SBIR Phase I: Correlation of Surface Free Energy and Cytocompatibility of Amphiphilic Biomaterials

This Small Business Innovation Research (SBIR) Phase I project will provide the basis for producing a unique cytocompatible, liquid adhesive bandage that will facilitate wound healing. This project is based upon a correlation of surface free energy of hydrated, amphiphilic polymers and their ability to support cell functions, such as growth and proliferation, deposition of extracellular matrix proteins, and patterns of substrate surface coverage and morphology. Current commercially available liquid adhesive bandages for professional applications on humans are used in a variety of wound coverage applications. However, there is no liquid adhesive bandage commercially available for human use that serves as a cell substrate as well as protecting a wound from foreign contaminants. The research will determine the surface free energies of a variety of amphiphilic polymers, ranging from highly hydrophilic to highly hydrophobic, and then correlate the surface free energy data to the cytocompatibility of the respective polymer films. It is anticipated that this approach will result in a selection of polymers in a narrow range of surface free energies that can accelerate tissue regrowth for wound healing.

The broader impact/commercial potential of this project is the creation of a new form of medical treatment for acute wounds (e.g., surgery sites, injuries), for chronic wounds (e.g., ulcers) and for burn wounds utilizing a simple, low cost, intimately conformal, protective polymer coating material that is capable of facilitating tissue regeneration. Such a coating will function as a synthetic skin substitute that will allow wounds to heal rapidly, without external contamination, such as from bacteria and other microorganisms, because of its ability to facilitate cell adhesion and proliferation. Importantly, this polymer coating will self-remove over time as the wound heals, in contrast to typical bandages that can cause new tissue abrasion and rupture when manually removed. This project will demonstrate how enhanced cytocompatibility of liquid adhesive bandages, and synthetic skin substitutes in general, can be obtained in topical wound care, thus leading to a reduction of patient suffering and a reduction in this nation's health care costs. The commercial impact of this product will be game-changing for topical wound treatment in that future materials should facilitate healthy tissue regrowth.